Computational Complexity of Problems in Number Theory

This proposal is concerned with the computational complexity of some basic and important problems in the number theory. These problems lie on the border between computer science and number theory. The proposal has both theoretical and practical aspects. The proposal is divided into three sections. The first section concerned with practical and theoretical aspects of methods for integer factoring. The second section discusses reducibility among number- theoretic problems, a field in which the principal investigstor has been particularly active. The third section is concerned with the interaction between number theory and automata theory, an area which has experienced a renaissancein the past few years.